RUI: Fourier Analysis of Learning Problems and Function Classes

The general area within which this research is performed is known as
computational learning theory. The starting point for research in this
area is typically the definition of mathematical models of what the term
``learning'' may mean in a variety of settings. The concept of learning
captured by these models is then formally analyzed, frequently leading
to algorithms for solving learning problems within the models as well as
to proofs that certain problems cannot be solved. These
learning-theoretic models and results lend support to more applied work
in machine learning, which in turn has demonstrated utility in
applications ranging from e-commerce to advanced research on vehicles
that drive themselves.

This project adds to the existing body of learning-theoretic knowledge
in a number of ways, including analysis of a relatively new model called
Probably Exactly Correct learning, development of an algorithm that
learns arguably the broadest class of functions yet shown to be
learnable (majority of AC0 functions), and work toward extending
hardness results for learnability of a fundamental class, the class of
parity functions. The key tool used in these and other project tasks is
Fourier analysis of classes of functions. While the primary purpose of
the Fourier analysis is to support research into learning questions, a
side benefit is the enhancement of our understanding of several
interesting classes of functions, such as majority of AC0. Furthermore,
this project provides a stimulating research experience to undergraduate
and master's students at a university that, from an NSF perspective, is
largely an undergraduate institution.